Study of the Properties of PECVD Deposited Polysilicon as Emitter and Emitter Contact in Bipolar Junction Transistors

In this project the PI will study polysilicon, deposited with a plasma-enhanced-chemical-vapor-deposition (PECVD) system, as a contact to the emitter and as the emitter of bipolar transistors. The research proposed in this project will concentrate efforts on alternative methods of polysilicon deposition. An existing PECVD reactor will be modified to allow for full control of all the deposition parameters. This will be followed by a study of the morphological properties, the conductivity, resistivity and doping characteristics of PECVD deposited polysilicon layers, leading into the investigation of the use of these layers in actual devices.